WOCE Hydrographic Program Section Along 88 Degrees West and 150 Degrees West

This proposal is to make helium measurements on the World Ocean Circulation Experiment (WOCE) cruises in the central Pacific on longitude 150 west. The helium data are useful as tracers of the deep ocean circulation, particularly in regions near the east Pacific rise from which elemental helium is known to emanate. These measurements, along with hydrographic and other tracer measurements will form the basis for ocean circulation descriptions and models which are the principal objectives of WOCE.